Women Chemists. A Comparative Study of the Work of Americanand European Women in Chemical Research to 1940

Dr. Creese is studying the work of women in chemical research between 1800 and 1940. The project is based on an examination of women's publications in the technical literature, primarily the journals published in Britain, France, Germany, Russia/USSR, and the United States. Dr. Creese is establishing for each country how much research was done by women chemists, who they were, where they were working and what areas they were specializing in. This will provide a unique base from which she will compare and contrast the work of women chemists in the countries considered. In addition, she expects to fill in biographical details for many of the women involved. This approach, with a slid basis in the original technical literature, gives a picture of the achievements of women chemists both broader and more detailed than anything so far published. This project is part of the on- going reassessment of women's historical roles in society.